Doctoral Dissertation Research in History of Science and Technology

Doctoral Dissertation Student, Robert S. Kiely; topic: "The Hidden Architect: 17th Century Notions of Structural Genesis in the Living World" Since the quantum revolution of the 20th century, the foundations of the scientific view of the universe is based on contingent theories of probability and chance. Such a view of the world around us, however, would have puzzled and perhaps even horrified natural philosophers who carried out the great scientific revolutions of the 16th and 17th centuries. These "scientists," whose work established what we know as modern science, shared a teleological view of natural objects. The notion of form played a crucial role in explaining the generation of both living and non- living structures in nature. Earlier studies have examined the changing ideas of form in the mineral kingdom as the mechanical philosophy rose to prominence in the 17th century. Mr. Kiely, for his dissertation research under the direction of Professor Dobbs, is examining the corresponding views of the period towards the living realms of nature. An intensive study of these views promises to reveal 17th century attitudes towards the relationships between the kingdoms of nature, as well as those between nature and its creator. This study would also help to evaluate the impact of the mechanical philosophy upon ideas of structure and generation in the living world, and illustrate how that philosophy combined with traditional elements to produce important modern concepts. Mr. Kiely's study requires careful examination of the published and unpublished work of those 17th century natural philosophers concerned with questions of life and structure: van Helmont, Gassendi, Boyle, Hooke, and Grew, among others. For this purpose, Mr. Kiely will use this doctoral dissertation research grant to travel to England to examine the unpublished documents in archives there.